Symmetry, Epitaxy and Ordering Processes of Supramolecular Assemblies

9806684 Hudson A number of new synthetic liquid crystalline materials that form spherical or cylindrical nanostructures (supramolecular assemblies) that are similar to certain biological materials will be investigated. Thermotropic materials are selected for this study, because of benefits that include experimental ease snd inherent application to harsh environments (temperature or vacuum), electronic and multifuntional ccomposite materials. The potential for electronic application of these materials is clear: the organic photoconductors with the most rapid charge transport operate on the principles of columnar assembly and liquid crystalline alignment. Order-order transitions (e.g. from columnar to spheroidal) have been identified and will be studied by diffraction and electron microscopy. These can be induced either by a temperature changeor by polymerization. Investigation of these transitions will provide significant understanding of thestructure and stability of each phase. Homologous series of molecules are being provided through several collaborations with the PI, so that the influence of molecular architecture on supramolecular shape and packing will be determined. The similarities and differences between long and short chain molocuhs will be elucidated. Such knowledge will be useful input for the development of theoretical concepts concerning the phase behavior of small amphiphiles. Further insight into these materials will be gained through the study of their order-disorder transitions. Using rheological ant optical analysis, this project will investigate the isotropic-to- columnar phase transition and the existence of pretransitional fluctuations that would indicate the presence of columns within the disordered state. The contol of this ordering transition is crucial for applicafions in which the device performance depends on column orientation. Surface anchoring and flow alignment of these materials will be explored. This project w fll provide the instruction and training of a graduate student. This project will also benefit a self directed portion of a laboratory course (at the graduate and undergraduate level). %%% Functional nanostructures in Nature (used for information storage, selective transport of chemicals and energy, and mechanical strength and toughness) inspire synthetic materials development. This project will investigatc the structure and ordering processes of synthetic solvent-free liquid crystalline nanostructures that are more suited to application in demanding environments (such as high temperature or vacuum), photoelectronic and multifunctional composite materials. This work will proceed in parallel with synthetic efforts in other labs so that principles of molecular design can be determined. ***